Young Scholars

The University of the Sacred Heart will initiate a five-week, multidisciplinary, residential, Young Scholars project for 15 students entering grades 9,10,11,12, followed by a school year follow-up component for students from Puerto Rico's public and private school system. Students are selected to participate through a carefully designed screening procedure, with an emphasis to be placed on participation by women and the disabled. The project's focus is interdisciplinary and stresses the development of basic investigation and research skills. Through lectures on scientific issues and contact with different specialists, participants are presented with a broad spectrum of science and mathematics careers from which to choose, and are encouraged to make a career selection or to establish a career goal. Project design is highly motivational and challenging, seeking to capitalize to a maximum on participants' demonstrated interest and high potential in science and math disciplines.